After the Dinosaurs: A Paleontology Exhibition and Education Project

9705453 Redline The Science Museum of Minnesota will develop "After the Dinosaurs", an exhibit that will feature a detailed reconstruction of the ecology of a Paleocene subtropical environment that existed in the North Plains of North America (58 million years ago). Information presented in the exhibit will come from a 25 year research project carried out by SMM curator Bruce R. Erickson and his colleagues at Wannagan Creek Quarry in northwestern North Dakota. This research has yielded one of the most complete assemblages of Paleocene megafossils in North America. Both the increased knowledge gained from this research and process of the research will be highlighted in this exhibit. Visitors will learn that the world's landscape has changed considerably over time, the analysis of fossils helps scientists reconstruct the past, knowledge of former ecosystems help us to understand current ecosystems, and everyone can be a scientific investigator when we attempt to understand our environment in a systematic way. Two versions of the exhibit will be prepared: a 4000 sq. ft. permanent version that will be installed in the new SMM river front building and will open in late 2000. There will also be a 2500 sq. ft. traveling version that will begin its national tour in 2002. Complementary programming will include an on-line interactive teacher guide and student project curriculum, a teachers' institute, and a variety of youth programming including specially developed interpreter training materials. The exhibit will be accessible to people with disabilities.